Implementing and Articulating Issues Across Grade Levels - The Gateways VI Conference in Reston, Virginia, September 25-28, 1997

9729247 Burrill The Gateways VI Conference, titled Implementing and Articulating Issues Across Grade Levels, brings together leaders from all the National Science Foundation funded elementary, middle, and high school comprehensive mathematics curriculum projects in order to share information and experiences and address questions that have surfaced as materials have been developed, tested, and implemented. This edition of Gateways is hosted by the National Council of Teachers of Mathematics and the major foci of the conference are articulation across grade levels and implementation.